Partnerships in HOSO Dissemination

Hands-On Science Outreach, Inc. has for a number of years developed and operated recreational after school and Saturday Science Classes for children, at first in Montgomery County, MD; and subsequently, with NSF support, at more than 22 sites around the country. During the last 10 years, they have reached more than 20,000 students with their unique collection of hands-on science activities. The project is well on the way to becoming self sufficient, and this final award will document both the philosophy of instruction and specific teaching methods that they have used and provide a third party evaluation of the processes of learning that they encourage in informal science education programs. Hands-On Science Outreach, Inc. will publish two 32 page booklets outlining their history, philosophy, and methods, and will conduct a third party evaluation of classes in four demographically diverse sites around the country, carried out under the direction of Dr. Harris Shettel, a nationally recognized informal education researcher. The resulting reports and publications will be widely disseminated, providing valuable information to others planning to offer hands-on science activities for children.